Computational and Experimental Study of Laminar Flames

Accurate and efficient computational methods for the solution of one-dimenstional counterflow and two-dimensional axisymmetric laminar premixed and diffusion flames will be developed and applied. Thirty hours of supercomputer time will be provided under the grant.